Establishment of an Inter-Institutional NSF/REU Site in Civil Engineering & Mechanics

Each student will conduct research related topic using the laboratory and computational facilities. Research projects are designed to permit flexibility in the student's level of preparedness, to develop independence in the student's work, and to generate an interest in and understanding of the research methodology. Research topics include consolidator characteristics of phosphate clay, biodegration of hazardous wastes, finite element analysis of bonded joints, differential temperature in slab bridges, and variable pulsed flow valve.